Participant Support for 2026 American Control Conference (ACC); New Orleans, Louisiana; 26-29 May 2026

This grant supports the next generation of researchers in control systems, automation, and robotics by defraying expenses for approximately 30 graduate students to attend the 2026 American Control Conference (ACC), held in New Orleans, Louisiana, 26-29 May 2026. The ACC is a premier venue for disseminating research on control theory, learning-based control, optimization, and intelligent systems design. The conference brings together researchers from academia, industry, and government laboratories to discuss recent advances in autonomous systems, energy networks, and cyber-physical security. The primary objective of this grant is to expand participation by enabling students from a wide range of institutions to present their work and engage with experts in the field. Student travel support expands access to professional development opportunities and allows participants to engage with the latest scientific developments and establish valuable professional connections. The conference also includes structured professional development activities to equip students with the skills necessary to contribute to future technological advancements, supporting national interests in economic growth, infrastructure resilience, and scientific progress.

The 2026 ACC features a broad technical program that includes learning-based control, networked and distributed systems, and the intersection of artificial intelligence with control engineering. There are also regular and special sessions on quantum systems for control. Core topics include advances in data-driven control, robust and adaptive system design, and novel transportation, healthcare, and manufacturing applications. The conference will also include dedicated sessions for career development, mentorship opportunities, and networking with leaders from both academia and industry. Attendees will have the opportunity to participate in technical panels that highlight emerging challenges and opportunities in the field. This initiative strengthens the pipeline of future control engineers and researchers by supporting student attendance, ensuring that the next generation of innovators can engage in high-impact scientific discussions and contribute to advancing the field.